Facilitate Arctic Science

Sheehan abstract

This award is to continue support for the Barrow Arctic Science Consortium (BASC) to support NSF research projects in and around the Barrow, Alaska area and in Chukotka, Russia. BASC provide assistance to NSF-funded scientists in planning the field logistical component of research programs, supporting the logistics and on-site information technology needs and facilitating community outreach about and involvement in the research activities.